Applied Intelligence for Automated Manufacturing Processing Operations

9313947 Fernandez According to the report of the Office of Science and Technology Program, Executive Office of the President on National Critical Technologies, "Intelligent processing equipment is the foundation of the shop project is to investigate schemes to use applied intelligence in automated manufacturing processing operations like Computer Numerical Control machine tools. The term "applied intelligence" refers to the technologies: expert (knowledge-based) systems, fuzzy logic systems, and artificial neural system (ANS). These supporting technologies combined with robust control and automated modeling techniques offer a tremendous potential when confronted with unstructured environments like manufacturing processes. Real-world (unstructured) operating conditions, such as those found in manufacturing processes, are characterized by noisy sensor and actuators, as well as process noise, drifts, system faults, and external disturbances. This project will construct a "nervous system" for a machining center that will observe various states of the machining system, :learn" the dynamics of a machining process, construct corrective codes, and initiate control. The approach will incorporate the "experience" into a knowledge base leaving an insightful trace about the signal processing capabilities of artificial neural networks, knowledge representation tools like fuzzy systems, and robust nonlinear control techniques like sliding mode control, is designed to be "intelligent". *** v s t M ( 9313947 Fernandez According to the report of the Office of Science and Technology Program, Executive Office of the President o f u a f $ ( F / f u f 1 Times Symbol " Helvetica 5 Courier New " " " h B e B e ( S R:\WW20USER\ABSTRACT.DOT abstract Alicia E. Harris Alicia E. Harris